Mathematical Sciences: Some Problems in Statistical Mechanics

8900244 Conlon This project is concerned with some problems in statistical mechanics. The basic aim of statistical mechanics is to obtain the large scale thermodynamic behavior of a many particle system from a knowledge of the microscopic interaction between the particles. The thermodynamic behavior is described as a function of a few parameters such as temperature and destiny. The principal investigator will study a classical gas with short range interaction at high temperature. He plans to show that at a sufficiently high temperature there is no phase transition. The main task is to study the high density system and show that it is approximately gaussian. He will also study ground state energies of systems with long range Coulomb interaction. These systems are particularly important since the electromagnetic Coulomb force is ubiquitous in nature. For a system of charged Bosons in a jellium background, he wants to show that the thermodynamic limit of the ground state energy per particle is, at high densities, given precisely by a formula of Foldy. This would show that the Bogoliubov ansatz, which is widely used in heuristic theories of superfluidity and superconductivity, is valid in a certain case.